Regulation of Chloroplast Transcription

Dr. Mullet's long range goal is to elucidate mechanisms which regulate higher plant chloroplast gene expression. He has three immediate goals; 1) to extend knowledge of environmental and developmental influences of plastid transcription activity, 2) to elucidate the molecular basis of light-independent activation of plastid transcription which occurs during early leaf cell development and the light-dependent activation which occurs in 8 day old dark grown barley and 3) to analyze the basis of psbA mRNA stability. The importance of this problem derives from the fact that the biochemical capacity of the plastid is defined by and requires coordinated expression of genes located within the plastid and genes located in the nucleus. In addition to the basic need to coordinate plastid and nuclear gene expression, the plastid must also respond to a wide variety of environmental and developmental signals. Information on chloroplast gene expression and development will be extended to obtain a more detailed knowledge of the plastids RNA polymerase and its regulation. Dr. Mullet has characterized stages of chloroplast development in barley primary leaves and identified light independent and light dependent events in this process. In the present grant a detailed study of the plastid RNA polymerase and factors which modulate its level and activity will be studied. In addition, analysis of psbA mRNA stability and identification of the protein encoded by ORF 1244 will be undertaken. %%% This is a study of the molecules involved in regulating the turning on and off of genes in the chloroplast of developing plants. The chloroplast are the site of photosynthetic activity and contain a genome independent of that found in the nucleus. The coordination of the expression of the two genomes is clearly important to the plant.